Mixing in Turbulent Free Shear Flows Constrained in a Shallow Fluid Layer

8806130 An experimental investigation is to be carried out on jets and mixing layers in a fluid of shallow depth. Here the usually observed organized vortex structures have a horizontal length scale very much larger than the shallow depth of the flow in the vertical direction. This vertical constraint on mixing has not been explored previously, yet this constraint is one very frequently encountered in various geophysical and environmental mixing situations. Hot film and laser anemometry will be used to supply velocity and concentration fields.